Cytotoxicity of Shark Leukocytes

The overall goal of this laboratory is to understand the immune and host defense capabilities of the shark in an effort to clarify the evolutionary origin of the complex immune system apparent in higher vertebrates. Thus far, three shark leukocyte mediated cytotoxic reactions have been identified: mitogen- induced, spontaneous macrophage-mediated, and antibody-dependent cellular cytotoxicity. The first goal of the proposed research is to characterize shark cell surface molecules, particularly those which participate in spontaneous cytotoxicity, using antibodies reactive with shark cell membrane molecules. Ten anti-shark leukocyte monoclonal antibodies have been generated, and others will be produced in the course of these studies. In addition, three anti-human and one anti-Xenopus monoclonal antibody crossreact with shark cells. These studies will define the cell membrane molecules necessary for cytotoxic reactivity. A second goal is to isolate the effector cell which mediates antibody-dependent cell-mediated cytotoxicity by density gradient sedimentation and rosetting, using shark antibody coated erythrocytes. The relative efficiency of the three types of shark antibody to participate in this reaction will be determined. Results from this study will define one of the most primitive systems in which antibody directs the specificity of cellular reactivity. A third goal is to determine whether sharks are capable of generating cytotoxic T lymphocytes following both in vivo and in vitro immunization with modified self or allogeneic leukocytes. These studies will determine whether animals as primitive as sharks use lymphocytes characterized by specificity and MHC restricted interactions in host defense functions. Nurse sharks evolved more than 70 million years ago, and have been successful as a species. Their host defense capabilities permit prolonged life spans, and in captivity, they are relatively free from infectious disease. Yet their immune capabilities are severely circumscribed in comparison to that of more recently evolved vertebrates. The results of this research should make major contributions to our basic knowledge of the immune mechanisms of the shark. A better understanding of immune-like mechanisms in a wide range organisms is important as a basis for rational approaches to maintaining the diversity of organisms on earth.